Collaborative Research: The MuLAN Project -- Development of Instrumentation for a New High-Precision Determination of the Fermi Coupling Constant

0079449
Carey
The MuLan Project will develop the instrumentation needed to
measure the lifetime of the positive muon to unprecedented
precision, namely, a factor of 20 better than the current world
average. The muon lifetime fixes the value of the Fermi constant,
which governs the strength of all weak-interaction processes, just
as the fine structure constant governs the strength of all
electromagnetic-interaction processes. The Fermi constant is one
of the fundamental parameters of the Standard Model of particle
physics. A low-energy, continuous-wave muon beam at the Paul
Scherrer Institute (PSI) in Switzerland will be modified by a new
beam chopper system in order to create intense, short bursts of
muons, which will stop in thin targets. A positive muon stopped in
appropriate materials decays as if it were in vacuum. Such targets
will be surrounded by a nearly hermetic set of 180 fast-scintillator
timing detectors, each coupled to a state-of-the-art waveform
digitizer, and all readout by a high-speed data acquisition system.
Online analysis of the nearly 100 terabytes of data will take place
with a small array of fast microprocessors.
A second use of the instrumentation is in conjunction with an
ongoing effort at PSI to measure the negative muon lifetime in
hydrogen gas. The negative muon can decay exactly in the same
manner as the positive muon, or in hydrogen it can interact with a
proton by the weak-interaction process known as "capture." The
capture rate is predicted very accurately by theory; however,
current experiments, which have various interpretation problems, are
in disagreement with theory by a very significant amount. If this
disagreement is confirmed, this difference raises the exciting
possibility of pointing to new and unaccounted-for physics. By
measuring the difference between the positive and negative muon
lifetimes, we will determine the muon capture rate reliably and at a
precision more than four times better than current measurements.
The MuLan timing detectors, beamline and custom electronics are
expected to play a major role in this effort.